Stable homotopy methods in p-local group theory

In this project, the Principal Investigator will employ methods from
stable homotopy theory to provide insight into the surprising relationship
between p-local group theory, modular representation theory and stable
homotopy theory. Specifically, the PI will first give a much simplified
description of the p-local finite group model for the homotopy theory of
fusion systems. This shows that a p-local finite group on a finite
p-group is equivalent to map from the classifying space into a p-complete,
nilpotent space with a stable retract satisfying Frobenius reciprocity up
to homotopy. In recent work, joint with Radu Stancu, the PI has shown
that saturated fusion systems on a finite p-group are in bijective
correspondence with stable idempotents of the classifying space that
satisfy Frobenius reciprocity. The PI will extend this result to a
bijection between p-local finite groups and idempotents that satisfy
Frobenius reciprocity up to structured homotopies. The crucial question
in the field is on the existence and uniqueness of classifying spaces for
saturated fusion systems (in the form of p-local finite groups). Using
results from this project, the question can be approached by refining the
current construction of classifying spectra from being a construction up
to homotopy to producing structured classifying spectra, and steps will be
taken in this direction.

Groups are fundamental objects in mathematics used to keep track of the
symmetries of an object (e.g. a set or a space). A group is said to act
on an object if that object exhibits the symmetries encoded by the group.
Among such objects the classifying space of a group is of special
importance, as its homotopical properties contain information about all
possible actions of the group on topological spaces. A finite group can
be characterized as the fundamental group of its classifying space --the
set of paths in the space beginning and ending in a fixed point where two
paths are identified if one can be continuously deformed into the other.
For a given prime p, the p-local structure of a group can be thought of as
the system of symmetries of the group that can be detected by actions on
sets whose cardinality is a power of p. This notion is made precise by
fusion systems as introduced by Puig and developed by Broto-Levi-Oliver.
As conjectured by Martino-Priddy, and proved by Oliver, p-localizing the
classifying space mirrors this construction in topology. More generally
one can consider abstract fusion systems that do not necessarily come from
groups and p-local finite groups are a model for the corresponding
classifying space suggested by Broto-Levi-Oliver. In this project the PI
will elucidate this correspondence by providing a simpler model for
classifying spaces of abstract fusion systems and take important steps
toward proving the existence of classifying spaces for arbitrary fusion
systems which is a fundamental question in the field.